Science for Citizenship: A Program for North Mississippi Middle and Junior High School Teachers

This project will provide the science content and process information necessary to update the knowledge base of forty middle and junior high school science teachers in earth, physical and consumer science. Participants will then apply this information as they implement state- mandated changes in the science curriculum. Through interaction and experiences, these teachers will build confidence and interest in providing current information and quality laboratory experiences for these students. The format for meeting these objectives consists of a four-week summer program and two seminars during the ensuing academic year. Sessions will be held on the campus of The University of Mississippi. The summer program will be devoted to lecture-discussion-demonstrations conducted by University scientists. Participants will also perform laboratory science experiments, both individually and in small groups to gain experience in implementing hands-on science in their schools. As follow-up to the summer work, teachers will share expertise gained din this program in staff development sessions with colleagues in their schools and neighboring schools. A project newsletter will allow participants to gain additional knowledge as they implement project activities. The project staff will visit school and the two school year meetings will help ensure implementation of educationally sound teaching of the students affected by the participating teachers. An amount equivalent to 25% of the grant has been cost-shared by the University and the participating school districts, with the latter using some of its Title II monies to support the released time for the teachers as they pursue the professional development components of the grant.